Proposal for a Symposium on Optoelectronic Packaging Science(August 19-21, 1992)

This grant is to help support a conference/workshop on photonic packaging. It is a follow-on to a wrokshop from a similar one supported by NSF one year ago. It was clear that packaging is a much more important subject than previously thought and the first workshop only scratched the surface. This year the topic areas to be discussed are: hybrid multi-chip integration and waveguide interconnects.